Role of the Too Many Mouths Gene in the Regulation of Asymmetric Divisions and Stomatal Patterning

Stomata consist of specialized epidermal cells that regulate gas exchange
for photosynthesis and are essential for plant productivity. They are also
a valuable developmental system for studying the role of asymmetric
divisions in cell fate specification and in cell patterning in plants. In
wild-type plants, stomata are spaced at least one cell apart. This spacing
pattern is generated in Arabidopsis through asymmetric divisions that are
extrinsically referenced through apparent cell-cell communication to orient
those divisions with respect to a pre-existing stoma or precursor. The too
many mouths (TMM) mutation induces stomatal clusters in leaves that result
from excess asymmetric divisions that are often misoriented. This
phenotype suggests that TMM functions in referencing or interpreting
spatial information to correctly position and allocate cell fate
determinants. In contrast to the stomatal clustering found in leaves, tmm
eliminates the formation of stomata in other organs such as stems. These
opposite phenotypes indicate that TMM plays a key role in stomatal
production and patterning at several different levels. The work proposed
focuses on the completion of the sequencing of the TMM gene; the
determination of its expression pattern in wild-type plants and in stomatal
patterning mutants; the analysis of the effects of its misexpression in
transgenic plants; the characterization of the cytology of patterning and
mispatterning; and a developmental analysis of how stomatal formation is
suppressed in stems. Long term goals are to identify key fate determinants
and the genes and events involved in cell signaling in stomatal patterning.